RIMI: Protein Biochemistry

HRD-9628724 Cal State LA University Auxiliary "Protein Biochemistry" This program will establish a protein analysis and purification facility which will b used to gain a better understanding of the mechanisms of action proteins and enzymes, and the biochemical processes that regulate their cellular concentrations and/or activities. The biochemical interactions and enzymatic kinetics of highly purified proteins that have been altered either chemically or by site-directed mutagenesis will be studied to understand their mechanism of action. Also, the concentrations of proteins before and after a nutritional or physiological change will be quantified to elucidate the biochemical mechanisms that regulate their levels within an organism. The titles of the research projects are "Regulation of Apolipoprotein A-1 Concentrations in Rabbit High Density Lipoproteins by Dietary Cholesterol and Jojoba Oil", "Synthesis and Analysis of Transition Metal Modified Peptides and Proteins", "Mapping the Allosteric Activator Site of Phosphoenolpyruvate Carboxylase by Site-Directed Mutagenesis", and "The Role of Enzymatic Oxidative Defenses in Arabidopsis Leaf Senescence". The program will involve five to ten students from minority groups underrepresented in the sciences, specifically, African Americans, Hispanics, and Native Americans, with the objective of preparing them for graduate school and research careers in biochemistry. Activities will include research training and presentations at scientific meetings, as well as seminars, and academic and career counseling. ***